Collaborative Research: GPS Measurement of Tectonic and Volcanic Deformation in an Active Island Arc, Luzon, Philippines

EAR- 0073992

Michael W. Hamburger, Indiana University

The investigators from three collaborating institutions (Indiana University, UNAVCO/UCAR, and Philippine Institute of Volcanology and Seismology) will continue an ongoing study of deformation associated with tectonic and magmatic activity at Taal volcano, Philippines. The project involves operation of a state-of-the-art, continous volcano monitoring network, consisting of three dual-frequency Global Positioning System (GPS) receivers, and a newly developed 12-station single-frequency GPS volcanic monitoring system. The project promises to improve understanding of the magmatic system associated with active volcanic processes at an active, subduction-related volcano; to provide refined spatial control on magma movement via continuous observation of crustal motion from a dense GPS volcanic monitoring system; to identify spatial and temporal interactions between tectonic structures and volcanic systems; and to provide testing and further development of a new, state-of-the-art volcanic monitoring system.